A Study of Evaluation Issues and Policies in a Large Organization

The field of evaluation has expanded quite rapidly over the past twenty five years so that evaluation of programs is standard practice in large organizations. Relatively recently, school districts, state and federal agencies, and large organizations have established internal evaluation staffs, procedures, and policies. These offices of evaluation are being created in faith that they will serve a useful function in improving science and mathematics education. In their infancy, agencies tend to aggressively pursue their mission. Later they become facilitators between the larger organization and the constituency regulated or observed. Finally, they become an arm of their constituency. If this is the normal development path, the evaluation agencies may not, in the long term, continue to pursue their mission effectively. No one knows, except through anecdote, what issues and policies arise, how they are disposed of, and how internal evaluation functions. This study proposes to examine the development of mathematics and science education evaluation issues, policies, and processes as they develop over a five year period within the Directorate of Education and Human Resources (EHR), of the National Science Foundation. By combining the results with evaluation theory, more general perspectives on the development of evaluation within large organizations should lead to deeper theory and understanding so that evaluation can serve the anticipated role in large organizations. The quality of evaluations in EHR may be facilitated by providing feedback from the study to people in EHR annually.